Minority Graduate Assistantship for Michael McNeil (Physics)

This Special Minority Award provides a year of support for Mr. Michael McNeil, who is beginning graduate studies at the University of California, Santa Cruz. The award will allow the incumbent to finish his course work expeditiously and reach the research participation phase of his studies sooner. This award is an integral part of the strategy of the National Science Foundation to strengthen and increase minority participation in the field of physics.